BAC: Signal Processing and Target Images for Spatial Perception in Bat Sonar

The goals of the research are to determine the signal-processing capabilities of the real-time, three-dimensional acoustic imaging system in the big brown bat, Eptesicus fuscus, and how the bat uses sonar images to control interception of airborne targets. It will be determined if novel signal-processing or information- coding operations are employed during echolocation. A computational model will be developed and evaluated and improved based on behavioral and neurophysiological experiments designed to determine the properties of parallel time and frequency transforms that produce spatial images of targets. This research is important because the model will illustrate how to bring time- and frequency- domain information together to form images. This information could be used to advance the design of made-made systems for target tracking and target identification.